Latent Heating Profiles in Darwin Area Squall Lines as Investigated with a Three-Dimensional Cloud Model

The influence of tropical squall lines on weather ranging from local to global is now being recognized by the meteorological community. Accordingly, observational studies that have focussed on tropical squall lines have been held off the north coast of Australia in recent years. The Principal Investigator will capitalize on already collected data by using a three dimensional cloud model to investigate the vertical latent heating profile of deep precipitating tropical mesoscale convective systems. Several considerations lend significance to a modeling study of latent heat release in tropical squall lines in this area. For instance: o Tropical convective latent heat release strongly influences both local rainfall and synoptic to global circulation features such as the Walker cell, a zonal arm of the global circulation over the tropical Pacific, with convection over northern Australia and the neighboring maritime continent normally forming the upward branch; o The Darwin area is uniquely equipped, both in geographical location and in coverage by radars and rawinsondes, for close observation of the convection that feeds the Walker cell; o Darwin area squall lines occur in a wide variety of kinematic and thermodynamic environments, in terms of available buoyant energy and low-level wind shear as well as other potentially important modulators of convective mode.